Dissertation Research: Native Hawaiian Activism and Cultural Identity Construction

This project is an ethnographic study of the process of cultural identity construction by native Hawaiian activists involved in a movement for sovereignty. During an eighteen month fieldwork period the researcher will investigate two Hawaiian grassroots organizations. One is currently involved in a land dispute over geothermal development, while the other is engaged in representing the past at an archaeological site. The research will examine how activists groups define and construct group identity on three levels public, group, and private) through demonstrations, rituals, ceremonies, and performances. This research will contribute to ongoing debates in anthropology concerned with cultural constructions and objectification, representation, and the invention of tradition.